HCC-Small: Collaborative Research: Assessing Technology Requirements for Preventing Teamwork Errors in Safety-Critical Settings

The staff in trauma centers are faced with complex problems under time pressure.
Despite the introduction of standard protocols, the diversity of injuries that can occur
requires a coordinated approach to the evaluation and treatment for each patient.
Trauma care involves complex teamwork under time pressure, and teamwork errors
endanger patient care and increase costs. Our proposed ethnographic study will use
observation and detailed analysis of video recordings of trauma resuscitations to
determine the nature and extent of teamwork errors in a trauma center. This detailed
study of complex teamwork will uncover the causes of teamwork errors in collaborative
high-risk environments. Methods will be developed to understand how teams work and
where difficulties arise. This work will yield detailed descriptions of errors and their
causes, a taxonomy of teamwork errors, information on how to improve team
performance, and guides to the use of technology for teamwork support. It extends the
level of detail of ethnographic research so that we can achieve precision in the
understanding of procedures which are difficult to monitor automatically but where
step-by-step records are essential to detect the causes of errors.
Understanding and improving the effectiveness of trauma teams has direct benefit to
society. Further, complex collaborations are ubiquitous in modern enterprises and these
results could improve collaborations both in terms of quality and productivity across
organizations. In addition, this work will serve to develop the skills needed by a new
cadre of researchers with knowledge of computer-supported collaborative work,
video-content analysis and cooperative research.